REU Site: Undergraduate Research in Experimental Condensed Matter and Atomic/Molecular/Optical Physics

UT-Austin establishes a Research Experiences for Undergraduates (REU) Site affiliated with its Physics Department. Thirteen students are recruited every year for a ten-week summer research experience. The research activity of the REU Site focuses on experimental condensed matter physics and on atomic, molecular and optical physics. The condensed matter program includes experimental research on thin films, microstructures and nanotechnology, with emphasis on materials that exhibit strong electron correlation and mesoscopic behavior. The atomic, molecular and optical physics program encompasses a range of research topics centered around the use of optical and/or electron based techniques to study and control matter. In addition to participating in research projects, students attend research seminars and group social activities.